Synthetic Studies Related to Natural Products

The Synthetic Organic Program is funding the research of Dr. William S. Johnson of the Department of Chemistry at Stanford University. Dr. Johnson will continue his world renowned studies on biomimetic polyene cyclization. The proposed work focuses on the use of cation-stabilizing (C-S) auxilliaries to enhance cyclization and also on the use of monoclonal antibody catalysis. The research will employ various C-S groups to explore synthetic routes to pentacyclic triterpenoids. Further, the C-S effect has led to to a proposed mechanism for the action of oxidosqualene cyclases involving stabilization of the transition states by ion pairing with external point charges delivered by the enzyme. Synthesis will lead to partially cyclized substrates with appropriately located positive centers and these compounds will be tested as possible transition state analog inhibitors. The initial studies of monoclonal antibody catalysis will focus on the design and synthesis of haptens which resemble cyclization products.